ITR: A Portal to the Distributed Computer Grid for the CMS Experiment at LHC

This proposal requests support for a group from the University of Wisconsin to develop a portal to facilitate the seamless access to the world-wide grid with computers that are not specially configured for the use of a particular project. The techniques developed will have general applicability to various computing intensive projects, including the high energy physics experiment CMS (at the Large Hadron Collider at CERN, Switzerland). It will leverage the tools developed by the GriPhyN (Grid Physics Network), iVDGL (international Virtual Grid Laboratory) and the PPDG (Particle Physics Data Grid) projects.

The proposed activities are to develop an object IO model that allows local caching and organized streaming of data to central servers; to adapt a CMS simulation program to take advantage of an abundance of CPU resources; and to establish an on-demand CMS simulation facility using the above items. The deliverables will be implemented in such a way that generalization to other projects is possible and the validated software tools will be made freely available.